CRB: Demography and Genetics of Rare Plants

Small populations of endangered species risk extinction due to random changes in population size, or due to harmful genetic changes. This research examines the relative importance of these two factors for species survival. The investigators will study this question using wild populations of two rare plants species in western Montana. Results will contribute to general understanding of changes in population size, as well as allow managers to formulate guidelines and principles for preservation of these and similar species. Finally, Lesquerella humilis, one of the species to be studied, is an alternative crop species with potential economic value in industry and medicine. Unique hydroxylated oils from Lesquerella have several uses in manufacturing. Sulfur compounds (glucosinolates) from Lesquerella are being examined as a potential antitumor drug. Thus, this research has important relevance to basic understanding of conservation biology as well as potential for practical application.